Presidential Young Investigator Award: Interactive Spatial Mechanism Synthesis

Several closely-related areas of research will be pursued by this Presidential Young Investigator. One area of research is the creation of an interactive spatial mechanism synthesis and analysis computer package. Such a package would, for the first time, place spatial mechanism design capabilities in the hands of practicing designers. Instrumental in this plan are efficient and understandable methods for the designer to specify design requirements and to review results. A significant amount of high- level computer graphics will be necessary for displaying such information. Further, it will be necessary for such a design package to contain optimization procedures that eliminate many of the intermediate, low-level decisions currently required in the interactive design process. Another area of research is the design of closed-loop robotic manipulators having many degrees of freedom. These robots will be superior to present open-loop manipulators in load-carrying capacity, accuracy, and dexterity. The final area of research is the design of high-speed bearings and shaft couplings. Improved theories in this area are expected to lead to a variety of applications including machine tools and turbomachinery.